Travel to the UNESCO World Congress of Engineering Educators and Industry

Abstract This is an international travel grant to Dr. M.S. Ghausi, Dean, College of Engineering, University of California, Davis. Dr. Ghausi will travel to Paris, France to attend the UNESCO World Congress of Engineering Educators and Industry, to present a paper entitled, Cooperative Training and Education between University, Government Laboratory and Industry. The dates of the meeting are July 2-5, 1996.